Statistical Mechanics of Driven Diffusive Systems

9727574 Zia This is a renewal grant to two researchers to continue their program on driven diffusive systems: complex behavior of interacting many-particle systems which are driven into steady states far from thermal equilibrium. A combination of techniques will be used to study these systems including exact solutions and simulations on discrete lattice models, as well as analytic techniques on continuum field theories. These systems are relevant to such diverse applications as surface/crystal growth, intercalation, granular materials, fracture dynamics, gel electrophoresis, diffusion in complex environments, traffic flow, etc. The first part of this grant will focus on collective behavior in driven diffusive lattice gases. While the simplest models are reasonably well understood, many of their generalizations, e.g., skew boundary conditions, anisotropic interactions, extreme aspect ratios or charge asymmetries, present unanticipated challenges. The second part will focus on new directions. These include random walks in a dynamic background; the study of histograms (full distributions) of various observables and the formulation of systematic Grassmannian field theories for systems with strict volume constraints; and, finally, fundamental issues in the statistical mechanics of non-equilibrium steady states. %%% This is a renewal grant to two researchers to continue their program on driven diffusive systems: complex behavior of interacting many-particle systems which are driven into steady states far from thermal equilibrium. A combination of techniques will be used to study these systems including exact solutions and simulations on discrete lattice models, as well as analytic techniques on continuum field theories. These systems are relevant to such diverse applications as surface/crystal growth, intercalation, granular materials, fracture dynamics, gel electrophoresis, diffusion in complex environments, traffic flow, etc. ***